The Second IMACS International Conference on: Nonlinear Evolution Equations and Wave Phenomena: Computation and Theory

This award will partially support the Second IMACS International Conference on Nonlinear Evolution Equations and Wave Phenomena to be held at the University of Georgia, April 9-12, 2001. IMACS is the International Association for Mathematics and Computers in Simulation. This award will support six invited speakers, students, and some direct costs. The conference will focus on the computational and theoretical aspects of nonliner waves and optical solitons.